Laboratory Studies of the Kinetics and Photochemistry of HOx Cycling in the Lower Atmosphere

This project supports continued laboratory studies of photochemical reactions related to the cycling of HOx in the atmosphere. Laser-based diagnostics techniques, such as REMPI-TOF will be used to measure photolysis yields and reaction rates at temperature and pressure conditions relevant to the atmosphere. Specific tasks include: (1) photochemical studies to determine the quantum yield of O(1D) from the photolysis of ozone, (2) measurements of the rate coefficients for the reactions of oxygen atoms and hydroxyl radical (OH) with HO2 over the over the pressure range 50-750 Torr, (3) measurements of the rate coefficient for the recombination of OH with NO2 over the same pressure range, together with the rates of deactivation of vibrationally excited OH with NO2; and (4) measurements of the heat of formation of the isoprene-OH adduct and the rate coefficients for the reactions of the adduct with O2, NO, and NO2.